Center for Technology-Based Business Development

9871991 Ward Center for Technology-Based Business Development The University of Maine will create a Center for Technology-Based Business Development to address Maine s shortcomings in the creation of technology-based businesses and net exportation of it s science and engineering graduates, as well as university based R&D. Strong, decisive action will be taken to provide opportunities for Maine-based technologies and students to develop companies in Maine. This strategy is consistent with the state s Science and Technology Plan and the state s economic development strategy . The Center will build on the University of Maine s successful industrial activity, and the practical experience of many other research institutions. The Center will develop the necessary organizational structure including: (1) an entrepreneurial environment for faculty, student and industry interaction, a pro- active technology transfer office with business development expertise; shared labs; (2) equipment and incubation space for small technology-based start-ups; and (3) new programs to educate and encourage graduate-student and faculty entrepreneurs. The multi-disciplinary activity will be directed at the state s and the university s five targeted technology areas. This activity will establish a critical piece of business development infrastructure currently unavailable in Maine and allow the University of Maine to take a leading role in technology transfer related economic development.